R/V Thomas G. Thompson and R/V Rachel Carson Shipboard Scientific Support Equipment: Scientific Support Infrastructure for Ocean Research

This project enhances shared-use scientific support equipment supporting research operations aboard the R/V Thomas G. Thompson and R/V Rachel Carson, research vessels operating as part of the U.S. Academic Research Fleet. The equipment upgrades improve the reliability and availability of critical systems used to support deployment of scientific instruments, collection of seawater observations, and vessel-based oceanographic research activities. The project strengthens shared research infrastructure aboard fleet vessels while supporting modern ocean science, workforce development, and research and education activities relevant to ocean observation, marine ecosystem studies, environmental prediction, and coastal resilience.

The project includes acquisition of an ultra-short baseline (USBL) acoustic positioning system, a wire lubrication system supporting oceanographic cable operations, and a diaphragm seawater pump supporting scientific sampling systems. These investments address aging and failed equipment, reduce operational risks associated with scientific operations, and improve the reliability and availability of critical research support capabilities. The project helps maintain the technical infrastructure necessary to support a broad range of oceanographic research activities conducted aboard Academic Research Fleet vessels and ensures continued access to high-quality scientific operations and observations for the research community.